Culturally Meaningful Adventure Stories: A Medium for Teaching Kindergarten Geometry and Spatial Skills

9730698 Casey Boston College plans to design, develop, evaluate, and disseminate innovative mathematics instructional materials for teaching spatial skills, spatial patterning, and geometric concepts at the kindergarten level. These stand-alone modules will center on the creation of multicultural stories that pose geometry and spatial problems. Kindergartners will solve the problems using manipulatives and other hands-on materials. Based on NCTM and NAEYC recommendations, these instructional materials will do the following: 1. Incorporate gender, racial, and ethnic diversity in the mathematics curriculum in a substantive way; 2. Integrate mathematics learning through the kindergarten curriculum using developmentally appropriate practices; and 3. Shift the focus of early mathematics education from a mainly arithmetic-based curriculum to one that incorporates geometry and spatial skills.